Geology of New York State: A Synopsis for Precollege Science Students and Their Teachers; A Model for Other States to Emulate

Geology of New York State will be a well illustrated, two-partpublication designed to lead the precollege student into the world of natural science through geology, an approach that capitalizes on the fascinating natural laboratory that is just outside every classroom. A sixty-page booklet will give an up-to-date synopsis of the State's remarkably varied geology. A large, full-color sheet, with a number of maps on both sides, will present the essence of the subject through graphics. It will feature a geologic highway map of New York and a space-satellite photomap printed a the same scale. This pair will display dramatically the control of geology on physiography, thus reinforcing the connection between the students' science courses and the familiar world. This publication will enhance precollege science learning by (1) piquing the students' curiosity about natural phenomena and providing a practical guide to accessible examples; (2) helping elementary and secondary earth science teachers prepare a more interesting course by providing them with insights into the local geology; and (3) creating a cadre of teachers to hold workshops for their colleagues throughout the State. The project has potential for significant impact in a number of areas. These include: raising the awareness of future voters about their geological environs and the impact of technologies upon these. The use of the publication by interested adults will improve the public's awareness and appreciation of science - a condition necessary for science to flourish in the schools. Further, the project will provide a high quality model for other states to produce similar materials.